Evolutionary and ecological dynamics of a contemporary climate-driven range expansion

Anthropogenic climate change is shifting the distributions of species across the globe. Such contemporary shifts in species’ ranges may have cascading effects on entire ecosystems. This project disentangles the mechanisms underlying climate-driven species range shifts in marine systems using the intertidal owl limpet as a case study. During the recent marine heatwaves off the Pacific coast of North America, populations at the northern range limit in northern California have expanded, with ongoing reproduction even after termination of the heatwave events. This is therefore an ideal system to explore the dynamics of natural selection that occur as species occupy new regions. Broadly, this project deepens understanding of how range shifts occur in marine systems and furthers the ability to predict future species distributions in response to climate change. The project provides research experiences for high school and undergraduate students from historically underrepresented groups by engaging with existing, demonstrably-effective programs. The investigators host leadership and skill-building workshops for senior female graduate students and engage the public in partnership with the California Academy of Sciences, Bodega Marine Lab, and San Francisco Exploratorium. Finally, the project provides training for a postdoctoral scholar and two graduate students.

Although phenomenological studies suggest that climate-associated range shifts are common in marine systems, to date, mechanistic studies of the climate-organism interactions that alter geographic distributions have largely focused on terrestrial systems. However, dispersal dynamics greatly differ in many marine systems, as currents may frequently transport planktonic larvae into new environmental regimes. This project integrates detailed demographic observations of the recent range expansion of the intertidal owl limpet, Lottia gigantea, with ecological, phenotypic, and genomic measurements of divergence across its range. Specifically, the work 1) documents phenotypic divergence in larval and juvenile traits across the zone of range expansion, 2) uses whole genome sequencing to estimate gene flow across the entire range, 3) identifies genomic patterns of selection across the zone of range expansion and through time, and 4) identifies drivers of variation in performance over latitudinal and microgeographic scales. The ability to monitor this range shift in real time, along with the suitability of this system for tracking individuals across multiple years, allows the investigators to examine the impact of selection in novel range-edge conditions at the phenotypic and genomic levels, and scale from individuals to species-level responses to ongoing environmental change.